1994 BOC Priestly Conference; Lewisburg, Pennsylvania; June 24-27, 1994

9411762 Root The 1994 BOC Priestley Conference will be held at Bucknell University in Lewisburg, Pennsylvania, from June 24 through June 27, 1994. This conference is a joint celebration between the Royal Society of Chemistry (RSC) and the American Chemical Society (ACS). In 1974 the 200th anniversary of Joseph Priestley's discovery of oxygen was observed. Since that time conferences have been held every three years; The first in 1977 in Leed, UK (Heterogeneous Oxidation): the second in 1980 in Birmingham, UK (Oxygen and Life); the third in 1983 in London (Oxygen and the Conversion of Future Feedstocks); the fourth in 1986 in Leeds (Membranes in Gas Separation and Enrichment); the fifth in 1989 in Birmingham (Separation of Gases); and the sixth in 1992 in Paris, France (Role of Oxygen in Improving Chemical Processes). The basic theme of the 1994 conference will be "Oxidants and Oxidation in the Earth's Atmosphere" with a keynote lecture on the history of ozone. Topics crucial to the atmospheric chemistry of global change and local and regional air pollution will be addressed. Recent progress in these areas has been rapid. As detailed in Section 2, the Organizing Committee has assembled a distinguished group of U.S. and international atmospheric chemists who will address the issues domination current research and policy agendas. The ACS and RSC feel it is important to communicate this progress and to identify remaining scientific and societal questions in a forum accessible to academic, industrial, and government scientists, engineers, and policy-makers. This grant will support the participation of graduate and post-doctoral students in the conference.